Workshop on multidimensional localized structures; July 18-19, 2008, Rome, Italy

This award supports the Workshop on Multidimensional Localized Structures, held 18-19 July 2008 in Rome, Italy, to prepare junior researchers for participation in the Conference on Nonlinear Waves and Coherent Structures, held 21-24 July 2008 in the same location by the Society for Industrial and Applied Mathematics. The workshop consists of lecture series by four leading senior researchers in the topical areas of the conference. The series of introductory expository talks are designed for advanced graduate students and postdocs. The award supports travel for the junior participants.

Pre-conference, introductory workshops of this kind are exceptionally effective vehicles for quickly introducing junior researchers to the technicalities of fields to be discussed at the conference. Participation in such a workshop gives the participants an unparalleled opportunity for efficient entry into research in the area and for developing connections with each other and with senior leaders in the field.

Workshop web page: http://www.amath.washington.edu/~kutz/nlw08.html